Digitization PEN: Field Museum of Natural History Partnership with the Southwest Collection of Arthropods Network

Arthropods play a major role in shaping the ecosystems of the southwestern United States and around the world. Arthropod research collections housed in museums and universities contain key data for studying these roles. Collections data can be used in ecological studies and to produce identification tools, but for many collections these data are hidden away on specimen labels and in field notes. The Southwest Collection of Arthropods Network (SCAN) was established to improve accessibility of collections like these, with a goal to capturing the data written on 750,000 arthropod specimen labels, allowing researchers to explore how arthropods shape the ecosystems of the southwest and how they respond natural and anthropogenic change. This Partner to Existing Networks (PEN) award to the Field Museum will enhance SCAN through the addition of label data from over 100,000 beetle specimens of SCAN target taxa, representing 860 species. Beyond the scientific value of the data will contributed to SCAN, this project will take advantage of the Field Museum's strong history in public outreach and status in the Chicago community to support informal educational opportunities focused on ground-dwelling arthropods both locally and across the globe.

This PEN project will make available the ecological, distributional, and morphological data from four beetle families for which the Field Museum has large, historical holdings: The darkling beetles (Tenebrionidae), the ant loving beetles (Pselaphinae), the feather-wing beetles (Ptiliidae) and the ironclad beetles (Zopheridae). The project will enhance the SCAN dataset by addressing critical taxonomic and distributional gaps. The Field Museum's collection of 60,000 Pselaphinae specimens, a group whose evolutionary history is deeply intertwined the ants (another target taxon), is the most comprehensive and heavily-researched collection of these beetles in the world. It is rich with type specimens (120 primary types), associated field notes, ecological data, and undescribed taxa, yet these data are still not digitally available. The project team will implement a workflow that involves 1) imaging and transcribing data from all labels on 100,000 selected specimens and adding the data added to the Field Museum's EMu database, 2) imaging all North American primary types for target taxa, 3) georeferencing all southwestern collection localities in the Field Museum Insect Collection database, 4) making these data available through the SCAN portal, GBIF, and iDigBio (idigbio.org) data portals, and 5) augmenting current digitization workflows at the Field Museum to leverage the intern and volunteer contributions and sustain digitization through establishment of a highly trained team of digitization volunteers and interns.